Membrane Dynamics as a Control of Chemical Processes in Bacterial Adaptation

9507189 Bacteria and other microorganisms are surrounded by a thin molecular skin or membrane across which they interact with the external environment. The molecular structure of this membrane adapts dynamically to allow the organism to survive in the particular environment. Information about the organism's environment is transmitted via components of this membrane known as lipids. These lipids are constantly changing in structure in response to the environment. Understanding this capacity for dynamic adaptive change and the nature of the actual changes themselves constitute the central foci of this research. The structural modifications that occur in the membrane during adaptive change are directed by enzymes that, in addition to functioning under extremely adverse conditions, have activities that are regulated by the actual conditions themselves. This constitutes an important molecular feed-back phenomenon that is critical to our understanding of adaptation. The research will use spectroscopic and chromatographic techniques to determine the changes in fatty acid structure and molecular cross-linking that occur in bacterial membranes during adaptation to extreme conditions. The ability of bacteria to adapt to extremes of temperature, pressure, acidity and the presence of organic solvents and other chemical species is important because of their potential utility as biocatalysts, bioremediation agents or to fix gases such as nitrogen or carbon dioxide. Better understanding of the critical features that determine this adaptability will improve our ability to use it to human advantage.